Space Charge, Beam Cooling and Advanced Beam Manipulation techniques

The proposal is to investigate beam dynamics problems

on space charge dominated beams, beam cooling, and

beam manipulation techniques in storage rings.

Topics of our research include nonlinear beam dynamics, beam cooling,

advanced beam manipulation techniques, design of compact medical

synchrotrons, and high gain free electron lasers.

Our results have been employed to control and alleviate

collective beam instabilities in high intensity storage rings,

to provide design criterion for power

supply ripple in high energy colliders, and to develop new methods

for emittance preservation in high brightness storage rings.

Some applications of high brightness beams are radioactive ion-beam

accelerators, spallation neutron source, heavy ion fusion,

biochemistry and bio-medical, material science, and defense research.

The proposed research is also important in training accelerator physics

graduate and undergraduate students.